Planning Grant: Exciting Girls, Minorities, and Rural Youth about Engineering through 4-H

This Planning Grant will enable the Ohio State University to address the shortage of professional engineers in the United States by designing an engineering curriculum for dissemination through the 4-H system. Planning activities include the establishment of a nationwide advisory committee, solicitation of input from the target audience via focus groups and the development of a plan for the curriculum and its content, designed to address the needs of young women and underserved groups. Pilot testing of sample units will occur in Ohio, Louisiana and Indiana. A recruitment plan will also be developed to aide with national dissemination.